Computer Science, Engineering, and Mathematics Scholarships

Howard Community College (HCC) in Columbia, Maryland is providing twenty-five (25) scholarships for full-time, financially eligible students majoring in computer science, computer support technology,
engineering, and mathematics. These scholarships expand enrollment by reducing economic
barriers to increased student retention and articulation. The project provides a challenging and supportive program that prepares them for engineering, computer science, computer technology or mathematics at four-year colleges or universities. Retention and success in the program involves program advising and counseling, a strong focus on assessing and developing the skills necessary for their success, tutoring and study groups, a Learning community support from peers. The graduates of this program are available to help alleviate the shortage of trained personnel needed by the high technology industries located
in central Maryland.